Fiber Diffraction from Macromolecular Assemblies

The goal of this project is to develop new strategies for determining the structures of macromolecular assemblies not amenable to conventional crystallographic analyses. The focus will be on assemblies made up of many identical subunits arranged into helical or planar arrays. Most of the subunits making up these assemblies cannot be made to form three dimensional crystals nor can the assemblies themselves be crystallized. Diffraction from the non-crystalline specimens that they do form has intrinsic limitations that make extraction of structural information more difficult than for crystallographic studies. In this project Dr. Makowski will develop methods to exploit new sources of phase information, methods for integrating structural information from other experimental techniques, and continue development of fundamental techniques needed for successful use of fiber diffraction. Specific objectives include; (1) use of multiwavelength anomalous scattering for phasing fiber diffraction patterns; (2) development of a method for refining structural models directly against film data; (3) use of simulated annealing for refinement of structural models against fiber diffraction data; (4) development of methods for integrating other structural information as restraints into the refinement of a structural model; (5) development of quantitative methods for assessment of structural models; (6) exploration of new methods of specimen preparation. These methods will be tested on a variety of macromolecular assemblies. The objective of the work is an integrated set of methods applicable to a very broad range of macromolecular assemblies.